Enzyme Hydrolysis Kinetics of Pretreated Lignocellulosic Substrtrates

Current studies of the effect of pretreatment conditions on the kinetics of enzyme adsorption on, and hydrolysis of, lignocellulosic substrates will be extended to include additional substrates and a wider range of enzyme concentrations. The adsorption of cellulase enzymes on, and dilution from, lignin will receive particular attention since it was shown in current work that the adsorption capacity of the lignin can be reduced by pretreatment at high temperature. It is proposed to study the changes in substrate particle size distribution that results from pretreatment and during the subsequent enzymatic hydrolysis. It is planned to combine these results with pore volume measurements in order to estimate the total surface area that is available for enzyme adsorption, an important parameter in the kinetics model. A quantitative model of synergism will be developed in an effort to explain the unexpected discovery in current work that the hydrolysis rate is proportional to the 0.67 power of the enzyme adsorbed on the cellulose rather than a linear function.